Mathematical Sciences Research Equipment

This project is an equipment grant under the activity Grants For Scientific Computing Research Equipment For The Mathematical Sciences program. The project involves the purchase of special purpose equipment dedicated to the support of research in the mathematical sciences. In general, this equipment is required jointly by several research projects and would be difficult to justify on one project alone. This research equipment support from the National Science Foundation is coupled with discounts and contributions of equipment from manufacturers and significant cost-sharing from the submitting institution. This project provides a good example of university, industrial, and government cooperation in the support of basic research in the mathematical sciences. The research projects supported by this equipment include work in numerical harmonic analysis, the study of partial differential equations, Riemann surfaces, Teichmuller spaces and Kleinian groups, and computational problems in real and complex geometry.